Model-Based Monitoring of Air-Traffic Control Software

0341620

Model-Based Monitoring of Air-Traffic Control Software

Martin Rinard

The research focuses on developing a new, model-based monitoring
technique that will dynamically examine the data structures and
variable values in the executing computation to find and flag any
inconsistencies. During development, this technique will flag
inconsistencies as soon as they arise, helping the developer to
localize the error by eliminating the continued execution (and the
associated inconsistency propagation) that obscures the source of the
error. After deployment, the technique will alert users to
inconsistencies as soon as they arise, eliminating the problem of
incorrect actions taken because of reliance on incorrect output from a
program operating with inconsistent values or data structures. Key
research issues include the design and efficient implementation of the
specification and model construction languages and the evaluation of
how well this approach works for two purposes: 1) in the context of an
existing system, to check key data structure consistency properties,
to promote design extraction, and to ensure that the design remains up
to date as the software is maintained, and 2) in the context of new
development, to promote design development, support error
localization, and facilitate debugging. The potential benefits of
this research include reduced software development effort, more reliable
software, and safer software. The research will be performed using
the CTAS software system in the NASA testbed and the TSAFE software
system currently under design at NASA.